Workshop on Interdisciplinary Crustal Studies, Southeast Alaska and British Columbia

This award provides support for a workshop to formulate a plan of research to study terrane accretion in southeast Alaska and adjacent portions of British Columbia. Geologists and geochemists who have extensive experience in the region will be brought together with geophysicists who have expertise imaging features in the deep crust. Because of the network of water ways in southeast Alaska, it will be possible to exploit the logistic and scientific advantages of using offshore/onshore seismic imaging techniques. The geological community has a good working understanding of the distribution of rock types in the area and models for their formation and evolution. What is now needed are constraints on the nature and distribution of structures and lithologies to the base of the crust and into the upper mantle. At the workshop, the overall tectonic history of the region will be presented, followed by discussions leading to a determination of what geophysical techniques could be used to resolve the major questions and where they could best be applied.